Summer Education Experience

Project SEE 1988 is an intensive 8 week (June 13-August 5) program designed to introduce 12 senior high school students to collegiate level course work in the disciplines of chemistry, life science, earth science and computer science. Activities will include laboratory techniques and procedures, independent research opportunities, discussions of ethical perspectives on scientific inquiry and career exploration in the sciences. The selected students will live on campus forming a learning community with faculty mentors.